Ion Channels in Drosophila Photoreceptors

Phototransduction is the process whereby light energy is converted into an electrical signal in the photoreceptor membrane. The goal of this research project is to gain insight into the mechanisms that underlie phototransduction in the photoreceptor cells of the eye. Photoreceptor cells, isolated from the eye of the fruitfly, Drosophila, will be used as a model system, since the phototransduction process in the fly retina is similar to that in the vertebrate retina, including those of mammals. When light strikes the eye, a cascade of biochemical events occur within the photoreceptor cells. At the endpoint of the cascade, an unknown intracellular messenger molecule causes "light-sensitive" ion channels in the photoreceptor membrane to open. The opening of the ion channels causes the cell membrane to undergo a change in its electrical potential which is responsible for the transmission of visual information to the brain. The study will focus on the role of ion channels in the phototransduction process and identify the intracellular messenger molecule which activates and modulates the activity of light sensitive channels. Experiments utilizing the electrophysiological technique of patching clamping will be used to examine the role of ion channels in this process. This technique will permit the Principal investigator to examine the function of all channels in the membrane acting in unison or examine single channels isolated in small membrane patches. Results gained from these studies will aid in understanding the function and regulation of ion channels involved in the visual system.